GeoSim: A GIS-Based Simulation Laboratory for Introductory Geography

Project GeoSim is a multidisciplinary effort involving members of the Departments of Geography and Computer Science, College of Education, and Learning Resources Center at Virginia Tech to develop Computer-Aided Education (CAE) software for the teaching of introductory geography. Project GeoSim will incorporate the immense capabilities of Geographic Information Systems (GIS) and simulation. Our CAE materials will be usable by a wide range of students, focusing in particular on introductory undergraduate students. Thus, the most exciting aspects of geography are made available to the widest audience, and in a manner that stresses dynamic processes over static information. Initially we will provide a series of two computerized laboratory modules applicable to virtually all introductory geography courses. These modules must meet several criteria such as being highly interactive, appropriate for computer novices, incorporating a GIS and simulation when appropriate, and able to run on a wide range of moderately priced equipment.